CISE Postdoc Research Associates in Experimental Computer Science: Manipulation of Rigid and Deformable Objects with Applications in Manufacturing and Computer-Assisted Surgery

EIA-0072743
Kavraki, Lydia
Rice University

CISE Postdoctoral Associates in Experimental Computer Science: Manipulation
of Rigid and Deformable Objects with Applications in Manufacturing and
Computer-Aided Surgery

Object manipulation has been a central theme in robotics over the last
decade. Efficient techniques have been proposed for positioning,
orienting, sorting, etc., rigid objects under a variety of constraints and
sensory input. Although several problems concerning rigid parts deserve
further attention, recent advances in manufacturing also require the
manipulation of deformable objects such as cables, pipes, paper, etc.,
needed for producing compact assemblies. Building on the theory of
manipulation of rigid objects, the postdoctoral associate will investigate
the manipulation of deformable objects and selected problems involving
rigid object manipulation. The goal is for the associate to assist in (a)
developing appropriate computational models for deformable objects, (b)
studying fundamental notions such as stable grasping and fixturing of
deformable objects, and (c) providing efficient procedures to compute the
expected deformations of objects under manipulation constraints. One
important and challenging application of the proposed work is the
simulation of deformable human tissues. Such a simulation can lead to the
development of virtual training environments for surgical procedures.